Studies in Elementary Particles

The experimental physics group at John's Hopkins proposes to continue their experimental program at the CDF detector at Fermilab. This collider experiment has been highly successful, recently discovering the last of the currently expected quarks, the top-quark. This experiment is at the energy frontier in particle physics, and is now being upgraded to operate at higher beam intensities. Hopkins is playing an important role in the experiment and the upgrade. This upgrade will allow more stringent tests of the standard model and gives the experiment enhanced discovery potential. The Hopkins group has begun to orient themselves towards the proposed CMS experiment at CERN. Their experience at Fermilab should make them a valuable contributor at the energy frontier of the future. /╝Á %/¥Á ╣> ¥©Á └?¥╣>À ¢Á╗┐Á>│Á ¼©╣¢ ╝Á¢Á/╝│© ┤Á└Á%?║¢ / Â?╝_/% _?┤Á% ╣> ┴©╣│© └?¥Á╝¢ ¢¥/╝¥ ┴╣¥© ║╝╣└/¥Á ╣>Â?╝_/¥╣?> /▓?┐¥ ¥©Á ╗┐/%╣¥` ?Â ¥©Á │/>┤╣┤/¥Á¢ «?¥Á╝¢ │/> ¢┐║║%Á_Á>¥ ¥©╣¢ ╣>Â?╝_/¥╣?> ┴╣¥© ╣>ÂÁ╝Á>│Á¢ ┤╝/┴> Â╝?_ Á/╝%╣Á╝ └?¥Á¢ ╣> ¥©Á ¢Á╗┐Á>│Á ½Á└Á╝/% Á┬¥Á>¢╣?>¢ ?Â ¥©╣¢ _?┤Á% /╝Á ┤Á└Á%?║Á┤ ¥©/¥ │/║¥┐╝Á ¢?_Á ?Â ¥©Á ┐>╣╗┐Á ÂÁ/¥┐╝Á¢ ?Â ¥©Á ║╝Á¢╣┤Á>¥╣/% >?_╣>/¥╣>À ║╝?│Á¢¢